Stability of Algebraic Manifold

Abstract

Award: DMS-9971387
Principal Investigator: David A. Gieseker and Huazhang Luo

In Geometric Invariant Theory, in order to study the moduli
problems, the notion of stability for any polarized projective
variety is introduced. However to check the stability is usually
a difficult problem. It has been done by Mumford for curves with
genus bigger than 1, by Gieseker for surfaces of general type,
and by Viehweg for high dimensional varieties with semi-ample
canonical line bundles. We will study the stability of a
polarized smooth projective variety as used by Gieseker and
Mumford from a differential geometric viewpoint. More
specifically, we try to relate the Gieseker-Mumford stability to
the existence of a special Kahler metric on the variety such that
its scalar curvature is constant and its Ricci curvature
satisfies some non-degenerate constraints. This metric is not
Kahler-Einstein, but is closely related to Kahler-Einstein
metric. One motivation for this project comes from the previous
work done by Donaldson, Uhlenbeck and Yau on the relation between
stability of vector bundle and the existence of Yang-Mills
connection.

Our project is to relate two important but different fields in
mathematics together. One is the study of special metrics, which
involves the study of differential equations on manifold and
usually has connection to physics. Another is the study of
stability in moduli space theory which involves mainly
algebra. Our approach is to establish a correspondence between
these two fields, in particular to describe the meaning of
stability in terms of the existence of special metrics. The
advantage for doing is it will not only provide us with new
insights about those special metrics, but also provide us with
new technique to moduli space theory. For example, this kind of
correspondence will enable us to solve some difficult
mathematical questions such as checking the Gieseker-Mumford
stability of some manifolds. This question is one of the
fundamental questions in the moduli space theory but has not been
solved in general.